Waves in Space

"Waves in Space," an educational museum exhibit for upper elementary and middle school students, clarifies the concept of radio wave propagation and how it is affected by variations in the Earth's atmosphere. The exhibit is based on research in upper atmospheric physics conducted by the Atmospheric Sciences Group at the MIT Haystack Observatory. This research is at the forefront of the emerging national space weather effort, a large NSF initiative to forecast and predict dynamic conditions in Earth's upper atmosphere and the effects these conditions have on key technologies such as cellular phones, pagers and satellites.